Herder-Forager Interactions in an Unstable Environment

With National Science Foundation support Dr. Garth Sampson and his colleagues will conduct archaeological and paleoenvironmental research in the Zeekoe valley region in South Africa. The goal of the work is to examine the relationship between environmental change and the response of humans who live at a simple technological level. Potsherds collected in the course of prior archaeological research in the region will be dated by both thermolumenescence and radiocarbon dating of adhering organic materials. Changing paleoenvironment will be reconstructed through the analysis of hyrax dung middens. This latter is a technique pioneered by Dr. Sampson. Hyrax are small territorial animals who return over generations to favored habitation sites. Resultant dung middens can span centuries and can be dated by radiocarbon. Because the contained material includes pollen grains, these latter can be analyzed to provide insight into changing climatic conditions. With these data Dr. Sampson will be able to correlate environmental cause and human response. For many years Dr. Sampson and his collaborators have worked in the Zeekoe valley region. Thousands of sites have been located and studied and the general chronology and sequence of events have been established. Over the period from about 600 - 1800 AD this region was most likely inhabited by two groups, one which subsisted by hunting and gathering and the other by herding sheep and goats. The interactions between the two appear to be complex and changing over time. When European settlers entered the region in the 1800s they encountered only hunters and gatherers there. While the pattern has been established, its cause is unknown and this is the focus of Dr. Sampsons' present work. The Zeekoe is a semiarid region which has undergone significant climatic fluxuation in historic times and likely in prehistory as well. This research is important for several reasons. It will increase our understanding of how humans adapt to changing climate and how groups at a simple level of technological development relate to each other in a varying environmental context.